Doctoral Dissertation Research in Decision, Risk, and Management Science

This is a sound, well-considered dissertation proposal to study children's decision-making in social situations. The general goals of this investigation are to understand children's social decision- making processes and to evaluate the relation between these processes and behavioral outcomes. The task itself, reactions to provocation in everyday situations, is socially important to both children and adults. Neither the problem nor the approach have received much consideration in the judgment-decision field or in the developmental-personality field. This work should give useful results at both basic and applied levels. In sum, this project is significant because it is the first attempt to construct and test empirically a specific, process-oriented theory of children's social decision making in an ecologically relevant behavioral situation.